High-Precision Earthquake Location and the Internal Structure of Active Volcanic Systems

9804862
Thurber

This research involves the investigation of volcanic magma bodies by means of new, precision earthquake location methods. Earlier studies of the seismicity related to volcanic activity usually showed a diffuse zone of earthquake hypocenters surrounding hypothesized magma chambers. More recent investigations on the island of Hawaii show that, after precision earthquake relocation, seismicity is highly concentrated in pencil-thin zones along the top-edges of magma-filled fractures. This technique is now to be applied in this research to other volcanic targets with pre-existing seismic data including Rabaul caldera, Mauna Loa volcano, Campi Flegrei caldera, and Pinatubo volcano. The study will result in comparative analyses of seismically active structures related to the magmatic "plumbing systems" of a range of volcanic structures. In addition, the relocated earthquakes will be used as well-located "source arrays" to identify reflected phases from suspected magma bodies. This research is a component of the National Earthquake Hazard Reduction Program.